Creating a New Biology Curriculum: A Collaborative Process

This modular, tenth-grade biology curriculum redefines biology instruction so that the teaching of biology encompasses new concepts and technologies, is socially relevant, is accessible and stimulating, and builds on the natural connections between biology, health-related issues and society. Taken together the six modules constitute a complete curriculum, which is interactive, hands-on, and inquiry-based, in which information is integrated into a coherent and related set of concepts which are relevant to students' lives and experiences. The modules integrate concepts and themes of biology in topics such as infections diseases, cancer, plants as food and medicine, habitat growth, mitochondrial Eve, and your body, yourself. The biological concepts of cell and molecular biology, evolution, energy and metabolism, development, reproduction and heredity, ecology and human biology are woven into themes of systems and interactions, energy and matter, evolution and patterns of change, diversity and variation, and structure and function. Each module contains a teacher's guide, students materials and performance assessment strategies and instruments, A Curriculum Planner provides assistance in implementing the curriculum and also a set of recommendations for program adopters for introducing and implementing the materials into the school system. The materials are developed by EDC in collaboration with distributors, evaluators, teachers and school districts.